Distributed Methods for Statistical Decision Making in Networked Environments

Abstract: Recent advances in sensor and computing technologies enable
massively distributed networks of sensors as candidate technologies to
provide real-time information in diverse applications such as building
safety, environmental sensing, habitat monitoring, power systems and
manufacturing. The potential of networked sensing by such devices is
enormous, yet there are significant system-level challenges in realizing
this potential by designs that are reliable, efficient and scalable.

This research involves the development of fundamental systems-level
framework for uncertain decision making in ad-hoc networked and power
limited environments. Although some of these issues have been
previously tackled in isolation, we will develop a unified approach,
addressing multiple interacting dependencies to obtain systems level
tools for rational design and implementation. Accordingly this research
has three principle thrusts: 1) Adaptive Querying Strategies (AQS) -- a
top-down viewpoint based on hierarchical architectures that involve
designated decision agents(s). In this thrust we propose novel feedback
strategies for sensor querying at low data rates (low granularity). 2)
Distributed Detection -- a bottom-up approach which amounts to consensus
building via local message passing on sub-networks. 3) Distributed
Estimation -- Strategies for scaling information granularity from a set
of known sensors to known destinations under operational constraints is
proposed. The novelty of this approach is to develop tools for sensor
fusion for transmitting information about non-ergodic, non-random
parameters observed in stochastic noise.